Acquisition of Mathematical Sciences Research Equipment

This project is an equipment grant under the activity Grants For Scientific Computing Research Equipment For The Mathematical Sciences program. The project involves the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required jointly by several research projects and would be difficult to justify on one project alone. This research equipment support from the National Science Foundation is coupled with discounts and contributions of equipment from manufacturers and significant cost-sharing from the submitting institution. This project provides a good example of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. This equipment consists of workstations, printers and an array processor. The equipment will be used in several projects including stability and bifurcation problems in fluid dynamics, exchange of stabilities in conservative systems, and numerical computation and simulation of large-scale collective effects in neutral networks.